Delaware Scholarships for Undergraduates in Science, Technology, Engineering, and Mathematics (DSU-STEM)

Delaware State University's DSU-STEM project is integrating seamlessly with the university's NSF-funded HBCU-UP program. The DSU-STEM project is supporting cohorts of 5-6 students for 2 years in each of the first four years of the project. Prior to the start of their freshman year, DSU-STEM Scholars participate in a one week summer training camp that focuses on developing problem solving and analytical reading skills. On campus, each DSU-STEM scholar becomes part of a freshman learning community. This cohort of 5-6 students is lead by a peer mentor trained in intrusive mentoring and a faculty advisor who holds biweekly meetings with the students and the peer mentor. Each entering cohort of DSU-STEM Scholars takes a one-credit-hour professional development class that is team taught by the DSU-STEM staff. The staff also meets monthly with all Scholars for a workshop, career seminar, or scientific talk. In partnership with the Science Resource Center supported by DSU's HBCU-UP and LSAMP projects, the DSU-STEM Scholars receive assistance in applying for funded research internships at DSU or another university.